Minority Graduate Assistantship in Chemistry--Mary E. Mason

Mary E. Mason has been awarded a Minority Graduate Assistantship in Chemistry. Ms. Mason's baccalaureate degree was from the Philadelphia College of Textile and Science with a major in chemistry. She is pursuing a Ph.D. at North Carolina State University at Raleigh in the area of Organic Chemistry; Professor Harold S. Freeman is serving as her advisor. The Minority Graduate Assistantships in Chemistry are viewed as an important infrastructural investment designed to broaden the participation, knowledge and experience of minorities and attract them into meaningful careers in chemical research and teaching.